Introduction to DNA Science

Seminole Community College is developing a laboratory course in DNA science, in which lower division nonscience and science majors perform exciting experiments in modern molecular biology. Using gel electrophoresis equipment, microcentrifuges and a shaking water bath, students make and analyze recombinant DNA molecules and transform E. coli cells with recombinant plasmids. Students verify transformations by replicate plating and by isolating, purifying, and analyzing the plasmid DNA in the transformed cells. Using a white light/camera system, students can accurately visualize and record their results. In this course students learn the basics of an exciting new technology while mastering the scientific method. During the semester length course, there is enough time to grasp theoretical concepts, perform basic molecular biology experiments, analyze data, critically evaluate the experimental design, and discuss the potential risks of such techniques. The college will contribute 106% of the NSF award.